The Structural Framework of the San Francisco Bay Area and its Implications for Earthquake Hazards: Workshop

9412260 Furlong This grant is to support a workshop of the Coordinating Organization for Northern California Earthquake Research and Technology (CONCERT) which is composed of the principal government, university and industry researchers in the fields of seismology, tectonophysics, geodynamics, structural geology, and geomorphology in northern California. The subject of the workshop is an integrative model of the present tectonic setting and an assessment of the implications for earthquake genesis and hazards in the region. A paper outlining the results of the workshop will be published. Approximately 100 professionals and regional press representatives are expected to attend the workshop scheduled for Menlo Park, California, on April 18-20, 1994. This research is a component of the National Earthquake Hazard Reduction Program. ***